Girl Scout Leader Training Program

The Franklin Institute Science Museum will, over a three year period, develop a regional Girl Scout leader training programthat provides science education experiences for Girl Scouts. The Girl Scout Council of Greater Philadelphia and the Washington Rock, NJ Council will be primary partners and the source of volunteer leaders and the target audience of member girls. Science Education kits will be developed and tested for Brownies and Juniors, training materials for staff trainers and volunteer leaders developed, leaders trained, and several post.training support mechanisms developed. Program materials are designed for continued use by the Girl Scouts; more than 2,000 leaders will be trained and 20,000 girls will participate in project activities during the three year period. This project is directed at the substantial under representation of women in many science and engineering fields by working with girls in informal settings to overcome patterns of science and mathematics avoidance. Replication and dissemination will be undertaken both within the Girl Scout Council system and among museums, youth organizations, and other informal educators. The proposers are contributing nearly $250,000 in resources to the project; NSF support will be 55% of the project total.